CASPER2010: Workshop for New Paths in Heterogeneous Digital Signal Processing

This grant will partially fund a workshop titled "CASPER2010: Workshop for New Paths in Heterogeneous Digital Signal Processing". The base mission of CASPER (Collaboration for Astronomy Signal Processing and Electronics Research) is to enhance and streamline the development of astronomical instrumentation through the development of platform-independent, open-source hardware and software. The aims of this workshop are to:

* Provide hands-on training in hardware and firmware development to students and experienced astronomers
* Discuss and disseminate scientific accomplishments enabled by CASPER projects
* To broaden the participation of the wider Digital Signal Processing community in the mission of CASPER

The funding provided by NSF will be used exclusively to provide travel and participation support for students and junior faculty to attend the workshop. Additional outreach activities related to the workshop will enhance the experience for the student participants. These activities include participation in lectures at the Harvard Smithsonian Center for Astrophysics (CfA) and night time observing with optical telescopes at the CfA. In addition, the participants will have access to a 2-m radio telescope and high-resolution spectrometer setup specifically for the workshop which will be run by CASPER circuit boards and tools.